Economics Computer Laboratory

This project establishes an economics computer laboratory. The laboratory enables the department to incorporate the computer into its undergraduate curriculum and thus enhances the ability of the students to conceptualize the essence of economic and empirical techniques. The award provides adequate capacity to absorb large classes such as introductory statistics, takes advantage of recent developments in object oriented languages, relational data bases, and integrated applications, as well as user friendly environments developments that will help the student conceptualize the substance of the course material. Thirty one MacIntosh II's along with related peripheral equipment and software are provided. All students in the introductory statistics class can now take a computer laboratory course in statistics. In addition, by taking advantage of recent software developments, the computer laboratory is used as a tool to enhance students' understanding of important economic and, especially, empirical concepts. The award will be matched by an equal amount from the grantee.